Iterative Methods for Nonlinear Equations and Optimization

Kelley
0707220

The principal investigator studies numerical methods for the
solution of nonlinear equations and optimization problems with a
focus on continuation methods, nonsmooth problems, and multilevel
methods for integral equations. The main topics of the research
are (1) the development and analysis of multilevel continuation
algorithms for optimization problems with integral equation
constraints and the application of those methods in simulating
atomic and molecular fluids, (2) the design and analysis of
continuation/quasi-Newton methods for nonsmooth nonlinear least
squares, with applications to calibration of models of blood
flow, (3) continued study of the conditioning of the linear
systems and eigenproblems that arise when pseudo-arclength
continuation is used in bifurcation analysis, and (4) multi-model
methods in which one physical model, based on differential or
integral equations, for example, is used as a preconditioner for
a solver which is based on a more accurate, more expensive to
evaluate model, such as a molecular dynamics or stochastic
simulation.

Nonlinear equations and optimization problems are commonly
encountered in science and engineering. Motivated by
applications in chemistry and medicine, the principal
investigator studies equations with multiple solutions, the
challenge being to determine which of those solutions represents
the real world and which cannot be seen in actual physical
systems, and optimization problems for which standard methods and
computer codes fail. This work should lead to new approaches
useful in many branches of science and engineering.